DLI-INTERNATIONAL: Cross-Domain Resource Discovery: Integrated Discovery and Use of Textual, Numeric, and Spatial Data

Abstract

IIS-9975164
Larson, Ray
University of California
$105,497 - 12 mos.

DLI-International: Cross-Domain Resource Discovery: Integrated Discovery and Use of Textual, Numeric, and Spatial Data

This is the first year funding of a three year continuing award. This project is a collaboration between the University of California, Berkeley and Special Collections and Archives , the University of Liverpool Library. The goal is to advance cross-domain searching capabilities in a multi-database environment. The effort is intended to result in a next generation online information retrieval system based on international standards that will facilitate searching on the Internet across collections of original materials, printed books, records, archives, manuscripts, and museum objects, statistical databases, full-text, geo-spatial, and multi-media data resources.